Mathematics in Everyday Life

The Cupertino (CA) Union School District, in partnership with the Cupertino Chamber of Commerce and volunteer accountants, stockbrokers, and bankers, will develop a mathematics program -- "Mathematics in Everyday Life" -- for 4-6th grade students. The program will utilize the expertise of the volunteer accountants, bankers, and stockbrokers in the local community to work with teachers to develop lessons for the classroom which provide practical math applications and real life skills to students. Two new units -- "Project Bookkeeping" and "Project Stockmarket" -- will be developed to complement "Project Banking", a previously developed unit which will also be revised as dictated by classroom experience. Completed materials will be made available for use throughout the Cupertino district and information about the program will be disseminated through county education offices and the State Chamber of Commerce. Cost sharing by the school district and private sector people and organizations will equal 70% of the NSF funding.